Oceanographic Instrumentation Enhancements Supporting Scientific Operations aboard the Research Vessels Roger Revelle, Sally Ride, and Robert G. Sproul

This project enhances shared-use oceanographic instrumentation supporting scientific operations aboard research vessels operating as part of the U.S. Academic Research Fleet. The instrumentation upgrades improve reliability and help maintain high-quality observations needed to study ocean circulation, marine ecosystems, seafloor processes, water column structure, and other ocean systems. The project strengthens shared research infrastructure aboard fleet vessels while supporting modern ocean science, workforce development, and research and education activities relevant to ocean observation, environmental prediction, natural hazard assessment, and coastal resilience.

The project includes modernization of underway seawater sensing systems, replacement of salinity measurement instrumentation, upgrades to acoustic navigation capabilities, acquisition of multibeam sonar spare components, and replacement of supporting laboratory water purification infrastructure. These investments address equipment obsolescence, reduce operational risks associated with aging systems, and improve the reliability and availability of critical observational capabilities. The project helps maintain the technical infrastructure necessary to support a broad range of oceanographic research activities conducted aboard Academic Research Fleet vessels and ensures continued access to high-quality oceanographic observations, seafloor mapping data, and analytical capabilities for the research community.